MGR Honorable Mention: Lisa M. Savage

This special award will give Ph.D. student Lisa M. Savage additional flexibility in pursuing her graduate studies and research initiation in experimental psychology. This award will strengthen minority participation in research in this area.